Probabilistic System-Level Fault Diagnosis in Multiprocessor/Multicomputer Systems

Due to their potential for high reliability and throughput via the multiplicity of components, distributed computing systems are being increasingly used for reliability- and time-critical applications. However, the probability of having one or more component failures in a distributed system increases with the number of components used. Thus, the ability of locating faulty components, isolating them, reconfiguring the system, and resuming the computation is a key to the success in realizing the potential of any distributed system. As part of the global goal of designing fault-tolerant distributed systems, this project is concerned with system-level fault diagnosis for large multiprocessor/multicomputer systems. A thorough survey of the currently available methods for diagnosis of large systems has led to a conclusion that a probabilistic approach is the most promising. A probabilistic diagnosis approach allows for the diagnosis of multiprocessor/multicomputer systems with both intermittent and permanent faults, using high-level tests which have imperfect fault coverage and/or are executed on-line. The first step of this project is to develop optimal solutions to the probabilistic diagnosis problem using single or multiple fault syndromes. The second step is to efficiently implement these solutions as distributed algorithms. This task is non-trivial since the identity of faulty communication links and processing nodes cannot be assumed to be known "a priori". Finally, the probabilistic diagnosis will be implemented and their performance will be measured on an experimental multicomputer system, called HARTS, which is currently being built at the Real-Time Computing Laboratory (RTCL), The University of Michigan.